Nuclear Astrophysics, Nuclear Physics, and Fundamental Particles

This grant supports research in nuclear astrophysics and nuclear physics. The nuclear astrophysics work involves study of nuclear reactions involving radioactive nuclides. Some of these reactions are of importance to primordial nucleosynthesis, as they determine the possibility of making nuclides heavier than carbon in the big bang. Others impact the Hot CNO cycle, in that they describe the ability of that stellar burning process to generate energy or synthesize nuclides heavier than oxygen. The nuclear physics component involves a search for a new type of reaction mechanism involving resonant pion transfer between analog nuclei at energies near the coulomb barrier. Both the nuclear physics and the nuclear astrophysics studies utilize experimental facilities at Notre Dame University and at Livermore National Laboratory which allow studies of reactions on the radioactive nuclei of interest by a double scattering technique.